Nonlinear Evolution Equations

The principal investigator will focus on several
representative problems connected with partial differential
equations arising in wave propagation and fluid mechanics.
In recent years there has been a significant progress on
the study of qualitative behavior of solution to nonlinear
dispersive models. The relation between dispersive and nonlinear effects
has motivated several remarkable works. As a consequence our understanding
of several phenomena in nature is now more complete.
However, several essential question remain open.
For example, an existence theory (local and global) for the Cauchy
problem for several systems of Schr\"odinger type arising in both
mathematics and physics is unavailable. This is due to the fact that
classical methods can not be applied. Thus one has to develop other approachs
which rely heavily on techniques and ideas in harmonic analysis. In collaboration
with C. E. Kenig and L. Vega, the principal investigator plans to
continue the development of Fourier Analysis for this fundamental area of nonlinear PDE's.

The wave propagation in diverse mediums and the interaction of
different kind of waves can be modeled by complicated systems of
partial differential equations. These systems involve many variables
which depends of the particular physical setting of the problem. In many cases,
these systems are too complicated to be treated with reasonable accuracy,
thus one has to consider approximated models. The vality of these approximations
is essential to further study of the physical phenomenon. One has to give
precise conditions under which the qualitative behavior of the solution of
these approximated models captures the features of the physical setting.
It is here where the theoretical study of these solutions become essential.
Thus, one starts with special solutions and its properties, stability, long time behavior
, ill posedness, etc. In situations where these theoretical results are unavailable one
needs to start the study with some numerical simulations